Conference: Upcoming Researchers in Commutative Algebra (URiCA) 2026 and 2027

This award supports participation of graduate students and postdoctoral researchers in the conference "Upcoming Researchers in Commutative Algebra" (URiCA) to be held in Lincoln, Nebraska on August 29-30, 2026 and in August 2027. URiCA (formerly known as KUMUNU Jr), is an annual conference hosted by the Department of Mathematics at the University of Nebraska-Lincoln designed to promote visibility and interactions between graduate students and postdocs working in commutative algebra and related fields.

The conference will feature eight talks from graduate students and postdocs over the span of two days. These talks will be on original research done in commutative algebra and related fields of mathematics. While URiCA was initially focused on connecting mathematical communities in the Great Plains region, previous success has allowed us to extend our outreach and include more early career researchers from outside this region. The goal of the conference is to help foster a varied and welcoming community of early researchers leading to increased collaborations and exposure to different areas of research being done in commutative algebra. The conferences will continue to provide an opportunity for early-career researchers to share their work and gain visibility amongst their peers. Conference Website: https://urica-unl.github.io/